Computational Cybersecurity in Compromised Environments (C3E) Workshop Support

The Computational Cybersecurity in Compromised Environments (C3E) is a community of interest that has annually gathered, since its inception in 2009, to address some of the most arduous challenges of cybersecurity. Through these annual workshops, organizers bring together a diverse group of top academic, commercial, and government experts to discuss innovative approaches to the cybersecurity challenges facing our Nation. This travel grant will support an estimated twenty-five travelers to the 2014 C3E workshop. The results of this workshop will be widely disseminated in the open literature. Additionally, this workshop and its challenge problems will create excellent opportunity for students to engage with leaders in the field in the context of unsolved problems.